GEM: ULF Wave Sigantures of the Dayside Magnetospheric Boundary

An integral component of the multi-agency U.S. Global Change Research Program (Our Changing Planet," Committee on Earth Sciences, 1991) is understanding and modeling the geospace environment. As part of its contribution to the U.S. Global Change Research Program, the National Science Foundation's Division of Atmospheric Sciences has established a new research initiative, Geospace Environment Modeling (GEM), with the goal of supporting basic research into the dynamical and structural properties of geospace, leading to the construction of a global geospace model with predictive capability. The subjects of the first GEM campaign are the magnetospheric boundary, the magnetosheath beyond it, and the connection from the boundary through the magnetosphere to the ionosphere. The goal of this award is to establis a method of identifying the location of the cusp by using ULF waves as a tracer of geomagnetic field lines. Using spacecraft data, wave pertinent to the magnetopause will be identified. This data will then be compared to ground-based observations.